Nuclear Structure At High Spin

9319934 Saladin Several experimental investigations on the behavior of nuclei at high angular velocity (i.e. high spin) are proposed. The interest in such studies lies in the fact that, as the angular velocity of a nucleus is increased, its internal structure changes due to the influence of the coriolis and centrifugal interaction. The proposed experimental program will be carried out with the Pitt array at Notre Dame, the Pitt-FSU array at FSU and at Gammasphere. In the A=70 to 80 region a search for theoretically predicted superdeformed bands is proposed. It is furthermore proposed to study odd A nuclei in the A=70 to 90 region and in particular the odd-odd nucleus Br- 78. A series of lifetime studies on Ac-219 by means of DSAM and the plunger method are proposed. A series of experiments are proposed. which are based on conversion electron spectroscopy which can provide crucial information on the multipolarity of transitions. Specifically it is proposed to study the origin of "surplus" electrons that were observed by the Pitt group in Ce- 130. Experiments are planned in neighboring nuclei in the A=130 nuclei and for different target and projectile combinations. It is furthermore proposed to confirm the M1-character of the recently found so-called M1-bands in the light Hg and Pb region.